Introduction of Teaching with Technology into a Calculus III, IV, ODE Sequence

This project is incorporating the computer algebra software Maple into the existing calculus III, IV, and ordinary differential equations sequence. Eight student compuers, two faculty computers, a color printer, a laptop and projector for the classroom, and Maple software are being installed. The lecture structure of the existing courses is also being altered to include laboratory components and the standard syllabi of these courses are being altered where appropriate to reflect Maple's influence.